Improvement of Instruction and Learning in Human Anatomy andPhysiology for New Majorty Students

Computer equipment and videodisk stations expand an open-ended anatomy and physiology laboratory into a learning center designed to supplement classroom activities. The facility is open and staffed from 9AM to 9PM Monday through Friday and 9AM to 5PM on Saturday. Students use the stations to drill and test themselves on course material from a library of Hypercards. In addition the stations are used for mastery based testing modes and for students and faculty to keep track of student progress. The center serves a large population of students with diverse backgrounds; students in the health sciences and education.This